SENSORS: Survivable Sensor Networks

The information utility of a sensor network is dependent on the survival of critical sensor nodes whose identities are determined by the dynamics of information flow and task distribution in the network. This proposal will develop energy-efficient algorithms for dynamically identifying critical sensors and increasing sensor lifetime through optimal data transmission schedules and duty cycles. Path reliability, length and sensor energy-consumptions are three important metrics affecting network lifetime. The notion of energy weakness of information routing paths will be developed and used to derive energy-aware protocols that enhance sensor network survivability by selecting reliable information paths with low energy weakness. New techniques for measuring the vulnerability of sensor placements and task distributions will be developed and used to derive efficient tasking algorithms that maximize critical sensor survival. Public dissemination of research and software and training of graduate students will be an important component of the proposal.